REU Site: Basic Science Scholars (BASS) Program

The Basic Science Scholars (BASS) Program is a rigorous, interdisciplinary, research-based program that integrates molecular genetics and computer science. Its purpose is to provide participating scholars with the scientific foundation, academic support and intensive mentoring that will promote their entry into, and completion of, doctoral programs in the basic sciences. BASS Scholars spend two consecutive years (Junior and Senior years) in the program undertaking research projects concomitant with their baccalaureate degree courses. Scholars must be full-time (minimally 12 credits) undergraduate science majors at Boston University or any other accredited undergraduate institution in the Boston area. Scholars will be paid a stipend for the duration of their participation in the program.

Scholars undertake research that integrates molecular human genetics and computer science components. The genetics component of the BASS Program focuses on linking African-Americans and Caribbean blacks to their ancestral ethnic groups in Africa via Y-chromosome and mitochondrial DNA analysis (see http://www.bumc.bu.edu/rootsproject). The computer-science component entails the development of new computer technologies and methodologies that allow the rapid genetic analysis of the human DNA data collected. Applicants must be rising Juniors upon entry into the BASS program. For complete application and program information, please contact: Dr. Bruce Jackson: [email] or Dr. Roscoe Giles: [email].